Computing Resource for Sequence Analysis

Support is requested for a campus-wide computing facility which will be used to provide access to sequence analysis programs and sequence databases. This facility will support more than 20 funded, on-going, basic science research projects in the Colleges of Science, Medicine and Agriculture. A large variety of these projects require storage of sequences on the computer, analysis of sequences by sequence alignment and pattern finding methods, retrieval of sequences from databases, and prediction of secondary structure of proteins or RNA from their sequence. Although simple types of sequences analysis are routinely performed on laboratory microcomputers, laboratories at the University of Arizona do not have ready access to more complex types of programs or sequences databases. The most feasible solution to this problem is to provide a shared computing facility equipped with a set of software packages such as the Wisconsin DNA sequence analysis programs, which will provide most of the required programs and databases. The proposed facility will provide computer access by direct cable or a telephone modem, and will be net worked to an existing computing system.